Collaborative Research: The effects of diatom-produced polyunsaturated aldehydes on the microbial food wed in temperate and polar waters

Overview: This project will conduct a set of field/laboratory experiments to address the following hypotheses with respect to microzooplankton (consumers between 20-200 µm) and diatom- produced polyunsaturated aldehydes:
I. Aldehydes will impair microzooplankton herbivory on diatoms and non-diatom phytoplankton.
II. Aldehydes will reduce the growth rates of microzooplankton and non PUA-producing phytoplankton.
III. In the presence of aldehyde-producing diatoms, copepods will switch to microzooplankton, whereas non- (mildly)- toxic diatoms will be an important food source for copepods.
IV. The effects of aldehydes on microzooplankton and copepods will depend on the grazers' prior exposure to PUA.
The experiments will include natural plankton, captured copepods, cultured Skeletonema marinoi (SM), including its aldehyde-producing strain, and synthetic aldehydes. To gain insights into complex interactions within planktonic communities, detailed information on their composition, abundance, and dynamics will be obtained using microscopy, flow-cytometry, and cytological methods. This approach will allow the PIs to draw conclusions about the role of diatom-produced aldehydes in phytoplankton-microzooplankton- copepod trophic interactions. The PIs will coordinate efforts and exchange information with the PUA study group at the Stazione Zoologica Anton Dohrn (Naples, Italy).

Intellectual merit: Diatoms are dominant autotrophic plankton in the ocean. Recent evidence indicates that microzooplankton are the dominant herbivores, whereas copepods often rely on microzooplankton as food, except during peak diatom production. The ability of microzooplankton to feed on large diatoms and grow as fast as their algal prey leads to the question of what allows diatoms to escape microzooplankton grazing control during the initial phases of their blooms and maintain the blooms until nutrient resources are depleted? Allelopathy is wide spread among phytoplankton. The cosmopolitan bloom-forming SM produces several aldehydes and has become a model organism in plankton allelopathy studies. Most studies on diatom cytotoxicity have been dedicated to inhibitory effects on reproduction and development of marine invertebrates, whereas surprisingly little information exists on its impact on key diatom grazers, microzooplankton. Preliminary results in the Chesapeake Bay show that aldehydes may induce cascading effects within planktonic communities. The proposed study will: (1) Improve our knowledge of the critical diatom-microzooplankton-copepod links in the coastal ocean; (2) Generate novel data on the effects of allelopathy on marine food webs; (3) Contribute to our understanding of broader patterns of marine ecosystems by comparing plankton structure and dynamics in the temperate Atlantic waters; (4) Advance biological oceanography through international collaboration.

Broader Impacts: One post-doctoral fellow, two graduate students and several undergraduate students at the Universities of Akron and Maryland will be trained as a result of this project. The project will attract motivated minority students into the program. The research will be extended to students in grades 7-12 and teachers via an interactive distance learning series in collaboration with the WVIZ Ideastream network. The PIs will continue an existing outreach partnership with the Great Lakes Science Center, where a recent electronic presentation dedicated to Arctic change and NSF-sponsored research was seen by ca. 45,000 visitors. The PIs will also work with the Cleveland Museum of Natural History to develop public programs, and with the National Inventors Hall of Fame STEM Middle School to develop a curriculum focused on polar research. Curriculum modules will be available as free downloads from a dedicated website. Broader Impacts, LLC, will evaluate these education and outreach activities.